Segregated Labor Markets and Immigrant Women's Use of Urban Space

Research in geography and related sciences has focused attention on gender-related segregation of space within cities. One profitable line of inquiry has been the study of the geography of women -- where they work, how they travel, how they function within employment, commercial, and social settings. Another line of inquiry has observed how gender relationships affect social structures. Much of this research has assumed high degrees of homogeneity among females and males, however. This Research Opportunities for Women Planning Grant will support an effort to refine a research plan that will attempt to identify differences in geographic and employment behavior among different types of women. A case study in New York City will be developed to test hypotheses that the use of urban spaces by women is determined both by their positions in the labor market and by the structures of their households. This planning project will consist of the analysis of women's positions in the labor market as documented in 1980 census data and development and testing of a survey instrument. Because a major focus of the research will be to differentiate between the experiences of recent immigrants versus women who have resided in New York for longer periods, the survey will be administered in Chinese and Spanish as well as in English. This project will help solidify the research design of a larger project that will contribute considerably to our understandings of the different ways that different women operate in modern cities. This type of research will enhance our knowledge of the role of gender in society, and it will broaden our appreciation of the complex ways that economic and social activities function. The project also will provide a superb opportunity for a young female scholar with an excellent background to further improve her basic research skills.